Collaborative Research: Graphical and Algebraic Models for Multivariate Categorical Data

The proposed research project develops models for multivariate categorical
data by mimicking Gaussian models with a desired model structure that can
be captured in terms of the non-parametric concept of conditional
independence. This method has a long history: graphical log-linear models
can be induced in this way by Gaussian models defined by zero constraints
on the inverse covariance matrix. The project seeks to greatly extend the
scope of the approach. It is proposed to define and study marginal
independence models for contingency tables, discrete-valued time series
with moving average-like dependence structure, seemingly unrelated
regressions with discrete response variables, and discrete graphical
models based on the recently introduced AMP chain graphs and ancestral
graphs. The main objectives of the study are development of
parameterizations, construction and implementation of efficient algorithms
for maximum likelihood estimation, and investigation of procedures for
model selection. A particular focus of the project will be on employing
modern tools from computational algebra in the analysis of the structure of
parameter spaces and properties of likelihood functions.

Multivariate statistical models seek to describe the complex relationships
between a large set of variables. A particular class of such models,
called graphical models, has found wide-spread application in fields like
artificial intelligence, bio-informatics, biology, epidemiology, and
speech recognition. The models proposed in the project extend the realm
of graphical models and it is anticipated that they will be applied in
many of these fields. Moreover, the proposed methodology will provide new
tools for the analysis of data of public interest such as census data.
The researchers also plan to make software tools freely available as part
of a larger open source statistical software package called R.